Connectivity for Christ the King Seminary

Abstract ANIR-9810444 PI: Joseph A. Roos Christ the King Seminary East Aurora, New York This proposal requests funds for the installation of a T1 line that will connect Christ the King Seminary to the Internet. Internet access will promote the sharing of information and the dissemination of research results. It also allows faculty to explore areas of interest, integrate new methodologies of teaching into their coursework; and facilitates the computerization of the library's collection. The award provides partial support of the project for two years.